Characterization of Ultrasonic Propagation in Tissue

The purpose of this applied engineering research is to characterize ultrasonic wave propagation in tissue. The research will involve both experimental and modelling effort. The ultrasonic waves will be measured after they have propagated through an inhomogeneous medium under carefully controlled conditions. A series of materials of increasing inhomogeneity will be used to insure that the modeling and the experiments coincide as the research progresses. The results should place bounds on the limits of resolution for ultrasonic imaging systems, provide new parameters for characterization of tissue, and allow development of new focusing techniques.